Ultra Fast Time Resolved Spectrofluorometer

A fast and high sensitivity time-resolved spectrofluorometer is proposed to develop into a commercial project. In contrast with the classical fluorometric method, such as time-correlated single photon counting and phase modulation, the novel instrument is based on the introduction of two recently developed techniques: a) single pulse laser excitation and nanosecond waveform analyzing by electronic imaging, and b) acoustooptical tunable filter as an electronically controlled monochromator. The instruments have the capability of simultaneously acquiring a complete set of decay and spectral curve sufficient for the construction of a 3-D manifold within 1 second. The sensitivity of the instrument can be as high as at femtomole (10-15 mole) and attomole (10-18 mole) level. These are far beyond the capabilities of current instruments. The instrument is compact, lightweight, low-cost, suitable for and will facilitate wide applications of the fluoroscopic method. Phase I will demonstrate the feasibility and Phase II will develop a prototype. The long-term goal is to use the method to develop numerous specialized instruments for basic research as well as for clinical and industrial applications.